Three-Dimensional Models of Subduction

O'Connell 9526882 The PI proposes to model and study the development of subduction zones in the mantle. Fluid dynamical models of the sinking of subducted lithosphere in the mantle will be developed, and applied to several subduction zones including South America, Tonga-Fiji, Izu Bonin-Marianas and Indonesia. The object is to relate the dynamical, time dependent development of a subduction zone to the morphology and seismicity of the subducted slab and to the observed variations of seismic velocities in subduction zones (as revealed by seismic topography). The work will also address whether significant amounts of subducted material penetrate into the lower mantle. The work will develop and use three-dimensional dynamical models of the sinking of lithosphere at a subduction zone. The models will include the effects of lithospheric plates, including realistic plate geometries that evolve with time. Different types of models will be used in order to most efficiently address various problems.